MPS/CHE-EPSRC: Entanglement Witness of Heterogeneous Surface Reactions

Researchers from Harvard University, along with their collaborators at the University of Nottingham in the United Kingdom, are developing quantum sensing and quantum information tools to determine whether entanglement plays a measurable role in heterogeneous surface reactions. Chemical reactions at solid surfaces are central to catalysis, corrosion, and energy conversion, but their microscopic mechanisms are difficult to observe because electrons, spins, radicals, and surfaces interact in complex and rapidly changing environments. Most models assume that environmental noise destroys quantum correlations too quickly for entanglement to influence chemical reactivity. This project will test that assumption by using nitrogen vacancy centers in diamond as nanoscale sensors of magnetic correlations during chemical reactions. The research team will develop methods to connect measured spin correlations to quantum information measures and will apply them to iron oxidation and photocatalytic water splitting. Their discoveries could reveal whether quantum correlations are merely microscopic features of chemical systems or can become measurable variables in catalysis. The project will train researchers at the interface of chemistry, materials science, quantum sensing, and quantum information science through a United States-United Kingdom collaboration, research exchanges, and an interdisciplinary workshop. This award is made under the NSF-UKRI lead agency opportunity.

The project will integrate operando nitrogen-vacancy-based magnetometry, quantum-information-theoretic entanglement witnesses, and first-principles open-quantum-dynamics modeling. The research team will first develop sensing platforms that operate in controlled gas-phase and liquid-phase reaction environments and will use covariance magnetometry to measure spatial and temporal magnetic-field correlations with nanoscale sensitivity. These measurements will be translated into experimentally accessible entanglement witnesses using quantum resource theory, semidefinite programming, and statistical tests that account for incomplete data and realistic noise. In parallel, microscopic models will be built by mapping first-principles electronic-structure calculations onto Anderson-Newns Hamiltonians and simulating open-quantum dynamics to predict bath-spin correlations and entanglement signatures. The framework will be benchmarked in the oxidation of iron and Fe3GaTe2, where changes in magnetic order provide a controlled platform for testing entanglement witnesses during chemical transformation. The methods will then be extended to photocatalytic water splitting, where spin-active radical intermediates at liquid-solid interfaces can be detected and localized using operando optical detection of magnetic resonance. The resulting framework will provide a basis for determining whether measured magnetic correlations in surface reactions are compatible with classical stochastic models or require nonclassical quantum resources.